Syntheses, Solid State Assemblies and Photovoltaic Effects of Conjugated Diblock Copolymers

The central theme of the proposed research is to explore conjugated diblock copolymers
for solar energy harvesting and to gain a fundamental understanding of the correlation between
molecular/material structures and photovoltaic (PV) functions. New modular approaches are
proposed to the syntheses of three representative new diblock copolymer systems, rod-rod, rodsemi-rod and rod-coil diblock copolymers. Plans are outlined to elucidate and control the self
assembly and phase behaviors of the resulting materials. The dynamics of charge separation and
charge transport will be investigated to gain insight into the electronic processes in these
materials. Rational approach to modify the ITO surface is proposed in order to direct the
interfacial assembly of these materials and optimize the charge injection. The resulting materials
will be used to prepare prototype solar cells in a well defined cell platform for detailed
characterization. The feedback from these studies will reveal the limiting factors in photovoltaic
materials and guide the development of new materials. These fundamental studies will
eventually lead to breakthrough in developing novel and cost-effective OPV materials enabling
high solar energy conversion efficiency as well as future commercial vitality.

The intellectual merit of the proposed activity: This proposed research in syntheses
and characterization of novel functional diblock copolymers will have a fundamental impact on
our understanding in charge separation and transport in organic materials. The relationship
between molecular structure and solid assembly, further between solid structure/physical
properties is fundamentally important to polymer science and material science. A well-defined
molecular system will lead to the formation of defined solid structures, which is invaluable to the
studies in organic light harvesting materials. The proposed work is an important example of new
functions that are introduced into diblock copolymer architectures. The modular synthetic
approaches proposed here will add new knowledge to the synthetic arsenal.
The broader impacts of the proposed activity: Our nation is currently facing an urgent
need for renewable energy source. Solar energy is the largest renewable energy source. Plastic
solar cells offer potentially low costs in materials and processing, the possibility for large area
and flexible structures, and the ease of the structural modification for the fine-tuning of band
gaps. The proposed research is highly beneficial towards our economy and society. The
proposed efforts will inherently provide ample opportunities for the interdisciplinary training of
graduate and undergraduate students at the frontiers of organic/polymer/material chemistry. We
plan to integrate the proposed research activities with a broad-ranging educational program
aimed at college undergraduate and graduate students. The importance of early involvement of
undergraduate students in research activities is widely acknowledged. In this program, we will
put a great effort in recruiting more undergraduate students. This project is ideal for training
graduate students and enables them to perform original and independent research. From these
highly intellectual processes, they will develop creative thinking and skills and become mature
scientists.